Participation in the International Astronomical Union: U.S. Participants in the 1997 General Assembly of the IAU; August 18-30, 1997; Kayoto, Japan

Form 10 Abstract Proposal AST 96-17619 PI: Robert Milkey Institution: American Astronomical Society This award supports travel expenses for astronomers to attend the 1997 meeting of the International Astronomical Union in Kyoto, Japan, during 18-30 August, 1997. This triennial meeting is the premier international meeting for astronomers. In addition to the regular sessions, many of the topical commissions also meet, establishing new standards and evaluating the status of research in various fields.